Mathematical Sciences: Monoids of Lie Type

This research is concerned with monoids of Lie type. The principal investigator will study the relation between the coefficients of the unity of Solomon's Hecke algebra and the Kazhdan-Lusztig polynomials; universal monoids of various types; and finite-regular monoids associated with complex representations of groups of Lie type. The algebra M of nxn matrices over a field is of fundamental importance in many branches of science. As an algebra, M is indecomposable. However, as a multiplicative monoid, M decomposes into n-1 local semigroups. Putting together these and similar local semigroups yields a monoid of Lie type which can be thought of as deformations of M. This research will use these monoids of Lie type to examine M.